Development of Innovative Engineering Students

The objective for this project is to provide educational experiences for chemical engineering students that will enhance the development of innovative and creative skills. Interactive computer modules and open- ended problems are being developed for use with each of the core (required) courses in the chemical engineering program. The modules and open-ended problems will complement the normal engineering course examples and homework problems and are expected to provide frequent opportunities for the students to practice the divergent thinking skills needed for the practice of engineering and yet leave enough time for learning the necessary engineering fundamentals. It is expected that the added motivation for learning fundamentals provided by the modules and the open-ended problems will be such that the engineering fundamentals are covered as fully as before. The institution has commited matching funds that are approximately one- third of the funds requested from NSF for this project.